Mathematical Sciences: Studies in Nonlinear Analysis

Work supported by this award will focus on several aspects of the behavior of solutions to nonlinear differential equations. The first part of the project will be concerned with solutions of the porous medium equation in more than one space dimension. The Graveleau solution of this equation is a solution of a radially symmetric equation which is generated by an orbit of a related first order system of ordinary differential equations. Solutions of this type tend to a power of the radius; this power is often referred to as the anomalous exponent. The phenomenon occurs in many other examples as well. Recent work suggests methods for calculating the precise value of the exponent. Knowledge of this value measures the Holder continuity of solutions. A second line of research concerns the stabilization in higher space dimensions for porous medium flow with reaction. Specifically, work will be done to classify positive and negative solutions to the equation with a cubic forcing term. Information about these solutions is expected to play an important role in the studies of the general case. Continuing work is also being carried out on superconducting quantum interference devices which are used in many applications as a sensitive detector of magnetic fields. It consists of two coupled Josephson point junctions with a constant bias current. The dynamics are described by a pair of ordinary differential equations. In analyzing the system one is led to a Hill equation with three simple eigenvalues and all the rest double. In order to understand the stability of solutions it is necessary to understand how the double eigenvalues behave under perturbation. Work is being done in seeking alternative expressions for the eigenvalues which may shed more light on solution behavior.